Developing a Realistic and Viable Methodology for Reliability Evaluation of Multi-Area Interconnected Power Systems

The objective of this research is to advance the methodology for reliability analysis of interconnected power systems. Several modeling extensions including jointly owned generation units, dependence among tie capacities, load uncertainty, and development of parallel algorithms will be investigated.